Synthesis and Studies of Selected Metal Carbonyl Clusters and Their Boron Containing Derivatives

This award in the Inorganic, Bioinorganic, and Organometallic Program is to Dr. Sheldon G. Shore of the Department of Chemistry, Ohio State University, for synthesis of new transition metal carbonyl cluster compounds. The number of metals in the cluster used as the starting material is typically six, and metals are Ru or Os. Loss of CO from known clusters results in new species which can be utilized in the synthesis of mixed metal clusters containing seven metal atoms. Attempts will be made to encapsulate boron into the mixed-metal clusters thus formed. Additional target molecules result from reaction of lanthanide cations with ruthenium, iron, and iron-ruthenium carbonylates. In a second part of the project, the behavior of clusters on magnesia surfaces will be investigated, especially with respect to proton transfer, thermal degradation, and reaction with hydrogen. %%% This project involves the development of new synthetic methods for metallic and bimetallic carbonyls. Some of the species prepared will be used to produce metal cluster compounds containing electron-deficient boranes or carboranes. Others will be reacted with solid magnesia to model surface reactions. This work has application both to understanding bonding and reactivity of organometallic compounds and to heterogeneous catalysis.